Scattering Processes Involving Low-Energy Electrons

Theoretical calculations on the ro-vibrational excitation, dissociative attachment and impact ionization of small diatomic molecules are performed using a combination of density functional and R-matrix methods. The goal is the development of accurate approximation schemes that are applicable to a broad class of electron-molecule collisions.